SBIR Phase II: AbGrab Laparoscopic Lifting Device

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is a reduction in the negative effects of laparoscopies, procedures to enter the abdomen through a small incision. Over 15 million laparoscopies are performed worldwide each year, particularly gynecologists, who represent roughly half the surgeons performing these procedures in the U.S. The proposed procedure does not require surgeons to alter their surgical techniques and requires minimal training. It uses equipment already in the hospital. The benefits will include better surgical outcomes, decreased patient post-op pain, and increased surgeon and patient satisfaction. Furthermore, it can ultimately be used in other surgical interventions, such as pannus retention, wound management, and liposuction.

This Small Business Innovation Research (SBIR) Phase II project addresses the need for a less invasive and more reliable method for lifting the abdominal wall during laparoscopic surgery. Current lifting techniques include manually grasping the abdominal wall and using invasive perforating towel clips. With manual grasp it can be difficult for the surgeon to maintain grip and proper elevation, especially with lean or obese patients. Alternatively, using perforating towel clips is invasive because the towel clips perforate the abdominal wall tissue to provide a handle by which to lift and elevate. The perforations can be a significant source of post-op discomfort and bruising for the patient. This project focuses on developing a medical device that uses suction to attach to and lift the abdominal wall more reliably than manual grasp and less invasively than perforating towel clips.